CAREER: Advancing Protein-Based Qubits into the Single-Molecule Regime

This interdisciplinary project, titled 'CAREER: Advancing protein-based qubits into the single-molecule regime,' explores fluorescent proteins as an innovative platform for quantum sensing. Recently, the PI's laboratory successfully encoded a qubit into the metastable spin state of an enhanced yellow fluorescent protein (eYFP), demonstrating coherence times of approximately 16 µs. With a size of only 3 nm and complete biocompatibility, these protein-based qubits offer significant advantages over conventional quantum sensing technologies, such as nitrogen-vacancy (NV) centers in diamond. Unlike NV centers, protein qubits can be genetically encoded, allowing for positioning with atomic precision at predetermined sites. These properties significantly enhance sensing applications by placing the qubit sensors just a few nanometers from the desired target spin, increasing dipolar interaction fields by up to a thousandfold. Furthermore, genetic encoding facilitates site-specific labeling within intact living systems, a highly preferred approach among biologists. This research holds transformative potential by bridging quantum technologies and biological sciences, thereby revolutionizing molecular-level sensing capabilities in intact biological systems. The successful implementation of this quantum technology will enable biologists to study fundamental mechanisms of disease at an atomic resolution, providing critical insights into conditions ranging from cancer to neurodegenerative disorders. Educationally, the project supports the creation of a multidisciplinary quantum workforce, actively engaging chemists, physicists, and biophysicists.

This CAREER Award addresses the key challenges associated with photobleaching and readout fidelity by converging quantum engineering and single-molecule biophysics. The proposed work will focus on: (i) developing a detailed mechanistic understanding of photobleaching processes of the protein qubit, (ii) establishing novel optical spin readout methods at the single-molecule level, and (iii) engineering molecular spin coherence and advancing sensitivity benchmarks significantly beyond current standards. These advances will facilitate quantum imaging and sensing at an unprecedented molecular scale, illuminating dynamic biological interactions and biochemical processes within complex cellular environments. In quantum simulation, protein qubits provide a powerful platform for exploring many-body dynamics in strongly interacting dipolar spin systems. Protein systems can achieve nearest-neighbor distances as small as 3 nm, corresponding to dipolar interactions exceeding 1 MHz, well above the observed coherence times. Additionally, protein assemblies can be systematically constructed in one, two, or three dimensions, providing exceptional control over a broad range of desired spin Hamiltonians. Despite their promising characteristics, current protein-based qubits are hindered by photobleaching and limited readout fidelity. This proposal was jointly supported by the Physics Section in the Mathematical and Physical sciences and the Molecular Biosciences Section of the Directorate for Biological Sciences.